New Pathways for STEM Teacher Education to Better Serve Minnesota’s High Need Student Populations project (Pathways)

This Noyce Track 1 project aims to serve the national need of preparing highly qualified STEM teachers. Additionally, this project will support 13 scholars majoring in science or mathematics by providing scholarships, mentoring, and specialized training opportunities. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in active learning instruction and meeting the needs of all learners.

This project at the University of St. Thomas includes partnerships with the South Saint Paul School District and Dougherty Family College. Project goals include preparing at least 13 undergraduate STEM majors from Biology, Physics, and Mathematics over five years to become secondary STEM teachers who are well-equipped to teach in high-needs school districts. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation objectives: (a) recruit at least 13 Noyce scholars in biology, mathematics, and physics; (b) retain and graduate 90% of Noyce scholars; (c) 100% of scholars will be hired in high-needs school districts; and (d) retain 12 out of 13 Noyce scholar alumni in high-needs school districts. The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.